Symposium on Development in Vertebrate Embryos: Environmental, Parental and Embryonic Interactions; Cambridge, United Kingdom; August 9-13, 1992.

This proposal seeks funding to support the overseas travel costs of American participants to a two-day symposium which is part of a larger four-day meeting at Cambridge University in August, 1992. This meeting is jointly sponsored by four scientific societies located in Europe, Canada and the United States and will be attended by approximately 300 biologists from throughout the world. The symposium is entitled "Development in Vertebrate Embryos: Comparative physiology, environmental influences and parental role." It was organized by Dr. Carol Vleck (University of Arizona) and Dr. Amos Ar (Tel Aviv University, Israel) and will be attended by 19 persons from nine countries, including 11 American. The symposium will focus on the special physiological problems that vertebrate embryos face as they progress from just a single cell to an independent individual. These developing forms do not have the same arsenal of physiological and behavioral responses that adults do to maintain function in the face of stress, yet still must be able to cope with conditions to which they are exposed. Relatively little attention has been given to understanding the diversity of physiological strategies available to embryos and how parents ameliorate the physical environment in which the embryo develops. The symposium will bring together for the first time persons from diverse backgrounds in vertebrate physiology. but all with a special interest in embryonic form and function.